CAREER: Inference-Driven Data Processing and Acquisition: Scalability, Robustness and Control

Ubiquitous sensing has enabled new services and applications that mark
every aspect of our lives. However, the ensuing data deluge is a brick
wall in face of our abilities to interpret, process and store data. Also, not
all the data collected is informative, nor well-attuned to the tasks we
care to accomplish. This project introduces new approaches for data
processing that hold promise to bring about stunning speedups in the
processing of massive data, and explores principled controlled data
acquisition paradigms for numerous inference problems. The research
activities are expected to advance the theory and practice of data
processing and acquisition in emerging cyber-physical systems for civil
infrastructure, healthcare, energy, and transportation.

The research involves 1) developing, and analyzing the fundamental
limits of, transformative subspace-based approaches to data processing
that are simultaneously scalable and robust to outliers using subspace
pursuit in structure-preserving data sketches, and data-subspace
formulations which are invariant to transformations that preserve the
underlying low-dimensional data structures, 2) exploring controlled data
acquisition in asymptotic regimes of large number of observations with
relaxed notions of optimality to unravel the complete structure of
optimal design and recognize unifying principles for the design of
efficient control policies for a host of controlled inference problems. The
practical implications of the fundamental results are studied in the
context of structural health monitoring for damage detection and
characterization of engineering structures. The educational activities
include establishing a new miniature sensing lab, developing an
introductory course on learning from big data and sequential analysis,
compiling a corpus of intuitive tutorials laying out the core concepts of
research results, and mentoring of senior design projects.